A Series of Regional Workshops in Chemistry for Undergraduate Faculty

9354010 Smith Georgia State University (GSU) and the Georgia Institute of Technology (GIT) will present an Undergraduate Faculty Enhancement project in chemistry in which the major activities of the proposed project are one-week workshops, 3-day mini-courses, and annual reunions of the previous year's participants. Workshop topics are: (1) Advanced Materials Chemistry, (2) Chemistry of Nucleic Acids, (3) Environmental Chemistry, (4) Molecular Modeling, (5) Molecular Orbital Theory, (6) Multidimensional Nuclear Magnetic Resonance, (7) Multimedia Techniques in Chemistry, and (8) Optimal Experimental Design and Statistical Analysis. The mini-courses are: (1) Oxygen Chemistry, (2) Organometallic Chemistry or Biocatalysis. Recruitment of participants is to be on a national basis. The project is designed to improve the ability of faculty at two- and four-year, public and private, institutions to develop and teach a modern program in chemistry. ***